CSR: Workshop: Computing Clouds for Cyber Physical Systems (CC-4-CPS), March 14-15, 2013, Arlington, VA

This award allows the PIs to plan and run an NSF-sponsored workshop on the topic of “Computing Clouds for Cyber-Physical Systems”. This workshop is to be held in Arlington, VA on March 14th and 15th, 2013